Working Toward Capacity in Multiple Antenna Radio

Over the past several years, there has been a great deal of research to
improve performance of wireless communications in fading environments by exploiting
transmitter and/or receiver diversity and spatial multiplexing. The pioneering work by Telatar,
Foschini and Gans showed that multiple antenna radios (MAR) in a wireless communication system
can greatly improve the performance. The major roadblock to MAR being a financially viable
option for wireless communications is the cost of the analog portions of the radio.
Point--to--point MAR systems employing complex signaling and signal processing algorithms have been
designed and built and have achieved performance very close to the outage capacity.
The remaining gains that are achievable in MAR will only be exploited by considering the cost
and complexity of analog circuitry in MAR signalling and signal processing, by considering more
complex models for wireless propagation, and by putting MAR in networking context. The
focus of this effort is to push MAR technology by exploiting the structure in these more
complex models and networking scenarios.

The objectives of the effort can be succinctly stated as:
1) Communication theory is often interested in normalizing performance
for a fixed average power but in wireless implementations the peak
power is a more critical driver than the average power. The research
is examining optimization of performance and throughput with a peak
power constraint in multiple antenna radio.
2) Feedback communication is likely going to enable a significant
improvement in throughput and demodulator complexity in a networked
scenario especially in environments with low mobility (e.g., wireless
computer networks). This research is approaching feedback
communication with a classic scientific method of iterating between
experimentation on real channels and more realistic theoretical problem
formulations based on the results derived in experimentation.
3) The cost driver in wireless communication currently is the analog
circuitry. This research is examining techniques that would minimize
the complexity of the analog systems in a multiple antenna radio. The
objectives are to being met by the following research tasks
a) Improved channel parameterization for long range prediction for
multiple antenna radio,
b) Design and field testing of a variety of MAR automatic repeat
request algorithms,
c) Experimentation with the proposed feedback algorithms for MAR,
d) Feedback algorithms for MAR with constant envelop modulations,
e) Feedback algorithms for MAR with limited analog capabilities,